CAREER: Regulating Vulnerability: Reproduction, Risk, and the Social Production of Biomedical Research Ethics

.

______________________________________________________________________________________________________________________

This CAREER project examines regulatory changes regarding obstetric patients and biomedical research over time. In so doing, it contributes to pressing scientific, medical, ethical, and policy discussions about the goals and consequences of research regulations and scientific knowledge production. The project also elucidates how the production of knowledge about reproduction matters for health and health disparities. This project's education plan centers on expanding instruction in science and technology studies and ethics. It will offer students who will be going into applied research, clinical work, public sector positions, and academia productive training for critically assessing, managing, and studying key issues in population health and research ethics. The broader impacts of this project also include producing white papers, training graduate students, and convening an interdisciplinary workshop that advances academic and public dialogue about reproduction and research. This project will be of interest to biomedical researchers, obstetric patients and their families, educators in the biomedical field and medical policy makers.

Drawing on multiple methods, including archival research, content analysis, oral histories, ethnographic observations, and interviews with experts and multiple stakeholder groups, this project documents past and present changes in research regulations pertaining to obstetric patients, and it analyzes how stakeholders respond to regulatory revisions related to reproduction. It asks: What social, cultural, political, and ethical factors have influenced research regulations regarding obstetric patients over the past eight decades? How do changes in regulatory categories with respect to obstetric patients and clinical research get taken up, deployed, and implemented? How do stakeholders respond to cultural, ethical, and regulatory changes in the context of reproduction and biomedical research? In answering these questions, this project enhances basic understanding within the history and sociology of medical science, and advances theory in science and technology studies about processes of knowledge production and outcomes of regulatory change. This project also increases scholarly and public understandings of the ethics and morality of human subjects research and builds a theoretical framework for the social production of ethics at the intersection of science studies and bioethics. Organizing a national workshop enables this project to bridge science studies scholarship with wider conversations about reproduction and bioethics.